Engineering Research Equipment: Microcalorimetric and Infrared Spectroscopic System

An instrument is being assembled that consists of a custom-made calorimeter with a response time of less than thirty seconds (compared with five minutes or so for commercial microcalorimeters) and capability for simultaneous investigation of the sample withattenuated total reflectance infrared spectroscopy. The rapidresponse time will permit determination of the heat of a process such as adsorption before subsequent slower processes obscure the measurement, while simultaneous infrared spectroscopy allows identification of the site of the process in cases where more than one possibility exists. Among systems to be studied with this new technique are nitric oxide on metal oxides or on metal zeolites and pyridine or ammonia on zeolites.